The Propagation and Breaking of Atmospheric Rossby Waves and Their Effects on the General Circulation

Rossby waves play a major role in the motions that determine the Earth's general atmospheric circulation and weather patterns, but many aspects of Rossby-wave dynamics are still poorly understood. Under this award, Dr. Magnusdottir will explore how regions of Rossby wave breaking, where potential vorticity is mixed and nonlinear processes must be taken into account, affect the basic flow. While the emphasis will be on the upper troposphere in the lower latitudes, the stratosphere and stratosphere-troposphere interactions will be considered as well. In particular, the roles of the Hadley circulation on Rossby wave propagation and breaking and of Rossby wave drag will be examined. The study will employ a hierarchy of models, from simple theoretical models to complex general circulation models.

In addition, the principal investigator will examine the dynamical influence of the stratosphere on tropospheric flow will be examined with a numerical model. Recent work suggests the stratosphere may have a more significant influence on short time scales than previously thought. Finally, as time permits, Dr. Magnusdottir will expand upon some preliminary work looking at the effect of higher sea surface temperatures on the atmospheric circulation at low latitudes.